SBIR Phase I: Integrated propulsion solution to enable reusable upper stages of space vehicles

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is to advance the development of reusable vehicles for space. Current space launch solutions use multi-million-dollar rockets discarded after a single use, increasing launch costs and limiting availability. Even the best solutions reuse only a portion of the rocket a handful of times, resulting in launch costs of $5,000/kg and higher. Rockets offering 100% reusability and operating like aircraft reduce cost, availability concerns, and service potential of space launch vehicles. The proposed technology advances reusable space launch vehicles.

This SBIR Phase I project proposes to develop new technology enabling space launch vehicles to re-enter the atmosphere and land propulsively at a target destination for reuse. Importantly, robust design solutions are proposed so that extensive refurbishment efforts are not required. Technical challenges include the combination of high-efficiency propulsion, rigorous thermal protection, and low structural mass needed to complete in-space mission objectives. This research investigates a new technical solution combining fundamental vehicle performance with system-level efficiencies to enable reusable second-stage vehicle designs. The optimization parameters include environmental conditions, energy balance, performance predictions, component sizing, and mechanical design elements.